Space Marching Algorithm on Unstructured Grids

This research is on space marching algorithms on unstructured meshes for high sped aerodynamic configuration design, with a view toward significant numerical efficiency gains with minimal loss in geometric flexibility. Characteristic based algorithms for the solution of the Eulers' equations of gas dynamics are proposed for computation on grids constructed by an advancing front method. Commercial applications include the aerodynamic analysis and design of hypersonic vehicles, supersonic transport aircraft, and military fighter configurations.